CISE Research Instrumentation

A workstation and electronic test equipment will be provided for researchers at the University of Florida for research in the Department of Electrical Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of Modular arithmetic systems; attached array processors, and neural network simulators.